STTR Phase II: Probabilistic and Explainable Deep Learning for the Intuitive Predictive Maintenance of Industrial and Agricultural Equipment

The broader impact/commercial potential of this Small Business Technology Transfer (STTR) Phase II is to improve schedule-based maintenance programs to ensure that industrial and farming equipment can function 24 hours a day, 7 days a week. The downtime associated with such high productivity equipment can result in significant lost revenue, and research shows that the average manufacturer deals with 800 hours of downtime per year. The proposed technology seeks to effectively reduce or eliminate this downtime, creating value for manufacturers. This project proposes a novel deep learning approach to predicting bearing failure in rotating industrial equipment and enable maintenance teams to confidently plan optimal maintenance activities around equipment that is in the process of degrading. This solution also aims to cost-effectively use a patented methodology to monitor industrial material handling systems with a combination of stationary and mobile battery-powered wireless sensors.

This Small Business Technology Transfer (STTR) Phase II project proposes a novel deep learning approach to machinery prognostics. Many existing deep learning approaches focus on the most likely failure scenarios given a set of training data. Monitored equipment may not exbibit behavior covered in that training set, leading to low-confidence predictions. The proposed approach may not only predict the remaining useful life of a machine component, but also seeks to quantify the uncertainty of a prediction through an ensemble of models and a temporal fusion of predictions. As a result, maintenance decisions may be made from a risk-based perspective, eliminating unnecessary maintenance stemming from low-confidence predictions. Additionally, many existing deep learning approaches also lack the ability to intuitively explain their predictions to human users. In critical applications where poor predictions have serious consequences, maintenance personnel must understand and trust an artificially intelligent predictive maintenance partner. The proposed solution produces an intuitive visual explanation for the model’s prediction by highlighting and animating the segments of a raw data signal that are contributing most significantly to the prediction. This technology may allow trained personnel to quickly make optimal maintenance decisions by fusing data-driven insights with their existing domain expertise.